Research Experiences for Undergraduates in Chemistry at Washington University, St. Louis

This Research Experiences for Undergraduates (REU) Site project is in the field of chemistry. For a three-year period beginning in 1992, eight undergraduate students will spend ten weeks each summer engaged in basic research under the direction of the faculty members in the Chemistry Department. A comprehensive program of academic research and social experiences has been planned. The participants will work closely with a specific faculty mentor and research group in a chemical subdiscipline of their choice. They will participate in a seminar series given by academic and industrial speakers and designed specifically for them. They will present their results in informal group and divisional meetings, and in a Program-ending Departmental Poster Session.